Dynamics of Moduli Spaces and Surface Groups

This project concerns the classification of geometric structures on
manifolds, the geometry of their moduli spaces, and dynamical systems
on moduli spaces arising from automorphisms of surfaces. For example,
complete affine 3-manifolds behave similarly to hyperbolic Riemann
surfaces. For a large class of examples, the deformation space has
recently been shown to be a bundle of convex cones over the
deformation space of hyperbolic surfaces. One aspect of the project is
the classification and dynamical study of such manifolds, and their
conformal and constant curvature generalizations. Another aspect of
this project deals with dynamical systems arising from the
classification of geometric structures on surfaces. The action of the
mapping class group on the character variety is a dynamical system
associated to the fundamental group of the surface and the geometry
associated to a Lie group. These moduli spaces support invariant
symplectic structures, as well as finer structures depending on a
Riemann surface with the given fundamental group. How do these
structures change as the Riemann surface varies? How do the geometry
of these structures influence the dynamics of their topological
symmetries of the surface? How does dynamical complexity of the
mapping class group action accompany topological complexity of the
moduli space?

These questions lie at the interface between geometry and topology,
unified through the notion of symmetry. While geometry involves
metric quantitative relationships, topology concerns the loose
qualitative organization of ``points'' in abstract ``spaces.''
Geometry relates to topology through their respective symmetries,
which can be studied algebraically through the techniques of group
theory. These questions are natural for experimental investigation.
The Experimental Geometry Lab at the University of Maryland provides
interested students opportunities for mathematical experimentation in
a stimulating environment. Its goal is the dissemination and
promotion of mathematics, related to the projects described above.
The Lab will continue to be a center for Undergraduate Research
Experiences, outreach presentations, and interactive projects at all levels.